High-Energy Physics Research at the Fermilab Tevatron Collider

The main focus of the research is the development, and use in physics measurements, of a particle detector system for the DO proton-antiproton intersection region of the highest energy collider in the world located at Fermilab. This detector system, called the DO detector, is expected to be one of the most important instruments for elementary particle physics research during the next decade. This work is a large collaborative effort amongst more than 20 institutions in which Willis, et al. play a significant role. The DO detector will be used to: measure the properties of the "weak bosons", carriers of the weak nuclear force; study the properties of the strong nuclear force (quantum chromodynamics); and search for yet undiscovered phenomena. Willis, et al. will also complete the analysis and publication of their work on Fermilab experiment E653, which measures the properties of short lived particles (e.g., charmed and beauty mesons) produced in nuclear emulsion. The field of research is that of experimental elementary particle physics. This research studies the basic building blocks of matter (e.g., electrons, positrons, quarks, and weak bosons) at very high energies. The experiments use accelerators and colliders which provide the highest energy particles made in the laboratory. The data is collected and analyzed using highly complex and sophisticated apparatus and techniques.